Preserving Historic Buildings of Major Importance

The objective of the Workshop is to explore how recent advances in the natural sciences and engineering for evaluating the vulnerability of constructed facilities to seismic hazards and the design of remedial actions may be exploited to develop an effective preservation methodology for irreplaceable historic construction. The product of the Workshop will be a research plan for formulating procedural, analytical, and decision making strategy for preservation of important historic construction subjected to seismic hazards, to include a pilot study to serve as a model for future preservation projects.